SGER: Geologic Modification to Coastal and Shallow Marine Environments of South Florida Resulting from Hurricane Andrew

The purpose of this project is to document coastal and shallow marine response to Hurricane Andrew in south Florida. Hurricane Andrew was a major catastrophic event that impacted a well- studied area. This proposal requests funding to quickly document critical sedimentologic modifications that we have recognized. Each need sampling and documentation before evidence is lost. The effect of Hurricane Andrew was brief, intense and with constantly shifting wind patterns. There was little or no wind more than 100 miles in advance of the storm. This is in contrast to previously documented Hurricanes Donna (1960), Betsy (1965) and Inez (1966) that affected similar regions. Andrew provides the opportunity to assess geologic response to this storm, as well as contrast responses to the different types of storm conditions of each of the storms. Geological modifications to the subtropical, prevailing low energy environments of south Florida were extensive. Hurricane Andrew caused major modifications to land and coastal wetland vegetation and expectable changes to shallow marine and coastal environments. Three observed changes from our reconnaissance warrant careful documentation, as they are not well recognized in the scientific literature but are of recognized significance in ancient deposits. These changes are: (1) reprofiling of quartz/carbonate barrier island beaches and dunes; (2) gravel saltation in inland regions; and (3) tabular and tubular tempestite stratification on carbonate mudbanks.